Collaborative Research: The Multiphase Chemistry of Inorganic Halogens in the Marine Boundary Layer at Hawaii During Summer

Chemical processes involving inorganic halogens and their influences on oxidation processes in the marine boundary layer (MBL) are believed to be important, but the rates of such processes are highly uncertain. Halogen-atom precursors are thought to originate from reactions involving sea-salt aerosol, as evidenced by halide "deficits" in aerosol ionic balances. This project is a collaborative study of halogen chemistry in marine air, involving researchers from the University of Virginia, the University of Hawaii, Massachusetts Institute of Technology, Max Planck Institute, NCAR and AOML/NOAA. The field study will take place during September 1999 in Oahu, Hawaii. Measurements will include HCl*, Cl*, Cl(total), ClO, BrO, IO, alkaline-reactive inorganic Br, O3, NMHC's, NO, NOx, NOy, CO, and major ion and bromine chemistry of size-segregated aerosols. Data will be interpreted based on thermodynamic calculations and photochemical models.